Mathematical Sciences: Asymptotic Theory for Computationally Intensive Statistical Methods

The advent of modern computing power has greatly enlarged the notion of a practical statistical procedure. On the other hand, important advances in statistical theory over the past decade (e.g. modern semiparametrics, empirical processes, bootstrap theory) offer extraordinary opportunity for creativity in the invention of effective statistical methods. This proposal is based upon the fact that a strong theoretical approach, combined with creative use of computing, can be an effective dual attack on a number of substantive problems. Specific problems proposed here include: regression with random coefficients (Beran, Millar), random sets arising in statistics (Millar, Nolan), adaptation and model selection (Beran, Nolan), probability forecasting via martingale methods (Nolan), the local stochastic search method (Millar), directional data (Beran). Collaboration is intended when more than one investigator is listed. Other topics are discussed in the individual proposals. Our apparently disparate statistical topics are related in part by means of the methods with which we intend to solve them. These methods include: iterated bootstraps, applied empirical process theory, semiparametrics, minimum distance methods, Hajek-LeCam asymptotics, and the theory of stochastic procedures. The team of investigators intends to provide useful statistical tools for several substantive fields. For example, our proposed estimation procedures in the random coefficient regression model are intended for use in econometrics, the studies of directional data are intended for use in geophysics, several of our proposed procedures in stochastic distance statistics will be used in the reliability analysis of electrical systems. Our proposed non-linear variants of the random coefficient regression model apply to the analysis of patient response curves to new pharmaceuticals. Our statistical applications of random set theory were motivated by problems in optics. Several of our graduate students will participate in the project; indeed, two of them will incorporate their work on the last two subjects in their forthcoming PhD theses. The approach taken in this proposal involves both a relatively abstract analysis and a computer-intensive implementation; consequently, these graduate students will receive a broad and sound training as young statistical scientists.